Computer Laboratory Exercises in a Survey of College Mathematics Course

Students are benefiting from a new mathematics course for general education requirements. The new laboratory course emphasizes problem solving and applications in the areas of linear programming, matrices, probability, and the mathematics of finance. The laboratory is equipped with IBM PS/2 computers running Derive. The institution will contribute an amount equal to the award.